Structure-Energy Relationships of Lithium Enolate Aggregates

This grant in Organic and Macromolecular Chemistry provides support for the research of Dr. Edward Arnett, Duke University. The work is focused on the structure-energy relationships which characterize the aggregation and reactivity of organic anions in solution. Understanding such relationships is essential for a complete construction of the interactions between reactants and solvents in solution. The following processes will be studied: (1) the energies for a number of fundamental processes such as heats of interaction of lithium cation with neutral ligands such as ethers, esters, ketones, aldehydes, and amines and with enolate, phenolate and alkoxide ions; (2) heats of reaction of direct relevance to the important reactions of lithium enolates such as the aldol and Michael condensations; (3) the degrees of aggregation for selected enolate ions in a spectrum of solvents of varied polarity --cyclohexane, benzene, dioxane, DMSO and sulfolane-- by freezing point depression (such results will be related to x-ray crystal structures, heteronuclear NMR, heats of complexing and, in favorable cases, to kinetic analysis of alkylation or aldol reactions); (4) equilibration of carbocations, carbanions, and radicals where thermodynamics and kinetics for single electron transfer may be compared directly with coordination (two electron transfer).